Retention Solutions in Advanced Electromechanical Technology

Four partner colleges nationwide apply previous results to develop a core manufacturing digital library of online resources, called learning objects. The learning objects reside in the digital library and support advanced electromechanical courses. Progressive indications and observations of enhanced student performance facilitated by the introduction of learning objects in the basic courses holds promise as a strategy to improve the retention of students in the advanced program courses. The digital library for electromechanical technology validates the impact of learning objects on student retention, performance and ultimately graduation.